LTREB: Multi-level Trophic Dynamics of Wolves, Moose, and Vegetation

9903671
Peterson
Then population status of gray wolves and moose in Isle Royale National Park has been monitored for 40 years in this island ecosystem to clarify mechanisms of population regulation for both predator and prey. Pervasive top-down control of an associated three-link food chain (wolf-moose-trees) has been demonstrated, as tree growth rates fluctuate in concert with wolf density. On the other hand, bottom-up influence of resource abundance on moose dynamics is evident in density-dependent reproduction, body growth, disease incidence, and a historic die-off from starvation in 1996. In 1999-2004 continued study will focus on (1) the potential for moose nutrition early in life to act as the major ecological integrator between bottom-up and top-down influences, and (2) the fitness of the wolf population, genetically isolated for 50 years and heavily inbred. This study represents one of the longest continuous studies of a three-link food chain in North America.